SBIR Phase I: MAUI Imaging 2D Probe for COVID-19

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is an new way of imaging the entire chest and lungs, a critical capability in assisting physicians treat COVID-19 patients. Identification of COVID-19 patients with lung conditions enables accurate triage to appropriate care levels. Current imaging modalities are limited: CT scans are limited by logistics of patient flow, re-sterilization after use, cost, and radiation risk; and conventional ultrasound cannot penetrate the full depth of lung tissue. The proposed project will develop a portable ultrasound system for bedside low-cost, non-invasive, highly accurate imaging of the lung, delivered via remote streaming and control, for the complex logistics of COVID-19 patient care.

This Small Business Innovation Research (SBIR) Phase I project will develop a portable ultrasound system for bedside non-invasive, highly accurate imaging of the lung parenchyma, mediastinum, and pleura. This project will develop core transducer components for integration into ultrasound probes, creating a 2-D imaging probe using 1-D transducer arrays. These 2-D arrays could ultimately be extended into a 3-D probe with full tomographic capabilities. The project will demonstrate the capability for lung imaging with sufficient quality to distinguish COVID-19 related issues without the need for accurate positioning, alignment, or registration.